Parents Involved/Pigeons Everywhere Project (PIPE)

9802248 Crippens ABSTRACT: The Parents Involved/Pigeons Everywhere (PIPE) project is a collaboration between KCTE-Community Television of Southern California, The American Association for the Advancement of Science, and the Cornell Laboratory of Ornithology. They are developing a three-year model project to engage parents in science education with their children through Project PigeonWatch, a citizen-science program run by Cornell University. The PIPE project will develop videos and written materials for use in a series of parent workshops designed for libraries and community science centers. The materials and workshops will be targeted to low-income parents with children in grades three through five and will be tested at 27 pilot sites around the country. A PIPE leader's Web Site will link all of the pilot sites. At the end of the pilot stage, the video and print materials will be widely available and the applicants will produce a publication that indicates strategies for using and building on PIPE and will provide assistance to new sites that wish to implement the program.